2nd International Conference on Amorphous and Crystalline Silicon Carbide and Related Materials (ICACSC)

Santa Clara University will host and jointly organize with Howard University the 2nd International Conference on Amorphous and Crystalline Silicon Carbide and Related Materials (ICACSC). It follows the successful 1st ICACSC at Howard University organized jointly by these two universities in December 1987. The primary sponsors are the National Science Foundation, the Electrochemical Society, and the IEEE Electron Devices Society-Santa Clara Valley Chapter. This conference brings together distinguished American and foreign researchers in an international forum for discussion and exchange of ideas and data concerning the current state of research on SiC and related materials. It is the intent of the organizers to encourage and promote further research on the fundamental properties of these materials and their applications.